Temperature Prediction from Wood and Leaf Physiognomy

9905668

Models of the relationship between plant structural characteristics and climate need to be thoroughly tested to determine their validity and precision. The proposed work entails the collection of leaves and associated wood from native angiosperms in forested areas whose climate parameters are known. The physiognomy of the leaves and wood will be used, in conjunction with existing climate models, to estimate temperature; these estimates will be compared with actual site temperature to determine the accuracy of the models and to refine their precision.